SBIR Phase II: Suction Retention Smart Variable Geometry Sockets (SVGS) for Transtibial Prostheses

This Small Business Innovation Research (SBIR) Phase II project will complete development of a production Smart Variable Geometry Socket (SVGS) for transtibial amputees (TTAs) and will test it with a clinical study. This non-electrical system is a simple means for ensuring and maintaining a good socket fit, with security and stability increased over the state of the art. Poorly fitting sockets, which cause pain and skin lesions, are responsible for a significant portion of TTAs rejecting a prosthesis. The SVGS/TT utilizes suction retention, which provides an important benefit, particularly to diabetics, by increasing blood circulation in the residual limb.

The unique SVGS system consists of multiple, liquid-filled bladders placed by the prosthetist during socket fitting and a control for maintaining appropriate pressures on the residual limb at selected locations, all contained within the dimensions of a conventional prosthesis. The SVGS can be applied by the prosthetist with existing equipment and conventional art, thereby minimizing implementation cost. This attribute will enhance market acceptance. Phase I demonstrated feasibility; Phase II will measure efficacy and acceptance by TTAs. Phase II results will be the catalyst for successful commercialization.